The Development of Proof Understanding, Production, and Appreciation (PUPA) with Undergraduate Mathematics Majors.

9355861 Harel The project has the potential to break new empirical and theoretical ground and further our understanding of what it means to understand mathematical proof and how that understanding develops. The knowledge gained from this study has the potential to impact significantly the way preservice teachers are trained to teach proof and ultimately how mathematics and mathematical proofs will be taught/learned in the school and college setting. ***